Mathematical Sciences: The Julia Robinson Celebration of Women in Mathematics

The Julia Robinson Celebration of Women in Mathematics Project Abstract The 25th anniversary of the Association of Women in Mathematics (AWM) will be celebrated in 1996, culminating in a conference entitled the Julia Robinson Celebration of Women in Mathematics. The goals of the celebration are: - to showcase the recent achievements of women in mathematics; - to facilitate networking among women in various fields of mathematics; - to provide role models and offer mentoring for beginning women mathematicians; - outreach to area teachers and students. The Celebration will be a 2 1/2 day conference to be held July 1-3, 1996, at the Mathematical Sciences Research Institute (MSRI) in Berkeley, California. The goals will be accomplished by the following events: - 10-12 lectures by women in pure and applied mathematics who are in various stages of their careers; - workshops focussed on career issues for beginning mathematicians in both academia and industry; - a Conversation on the topic of Women and Mathematics to be held with area high school and junior high school teachers and students.